Expansion of a Module Based Multimedia Courseware for Curriculum Enhancement in Power System Education

This award provides funding to Virginia Polytechnic Institute and State University (VPI), Arun G. Phadke, Principal Investigator, for the support of a three-year, Combined Research-Curriculum Development (CRCD) project entitled, "Expansion of a Module Based Multimedia Courseware for Curriculum Enhancement in Power System Education." The objective of this collaborative project between VPI and Iowa State University (ISU) is to enhance the existing web-based, modular, multimedia courseware created for the PowerLearn project and improve its effectiveness as a curriculum development tool.